PGE/LCP: Techbridge

Techbridge is a three-year Large Collaborative Project between Chabot Observatory and Science Center, Oakland Unified School District, California State University-Hayward, Mills college, Lawrence Livermore National Laboratory, and Community Resources for Science that (1) encourages girls to pursue academic and career options in technology and (2) contributes much needed research regarding gender, culture, and technology. This model program takes an innovative approach to engage teachers, counselors, families, role models, and peer support networks in keeping girls involved and motivated in technology. Techbridge utilizes project-based learning to introduce girls to technology and role models to help girls realize that technology is a tool for many different career options. It builds bridges to ease the transition from middle school to high school and helps girls visualize the next steps to college and careers. In addition to quantitative analysis that will track and assess the progress of participating girls, qualitative analysis will study the complex interaction of gender and culture on girls' experiences with technology and choices regarding coursework and career plans to better understand how families and schools can support girls. Project partners will work together to institutionalize project findings and resources into existing teacher training and district programs for long-lasting impact.